Collaborative: Expanding the Use of Online Remote Electron Microscopy in the Classroom to Transform Undergraduate Geoscience Education

This collaborative project examines the remote operation of analytical instruments, specifically a scanning-electron microscope and electron microprobe analyzer housed at Florida International University (FIU), to facilitate inquiry-based approaches to learning in undergraduate geoscience courses. The effectiveness of remote instrument use is being assessed across different course levels and audiences at four diverse institutions: FIU, Valencia Community College, Florida Gulf Coast University, and the University of South Florida. Faculty at each institution are adapting instrument use to their courses and students, and using common methods to assess learning gains and changes in students' attitudes along a novice-to-expert trajectory. Instrument use and learning assessment at the four partnering institutions is being supplemented by national-level outreach to engage further partners, using hands-on workshops and follow-on individual training and consultation for faculty who commit to pilot use in their own courses.

The intellectual merit of the project lies in its well-formulated plan to leverage fixed-location, high-end analytical instruments to enable authentic research and inquiry within the undergraduate curriculum at remote institutions. The embedded educational research addresses important questions of a) how much and what type(s) of remote instrument-aided inquiry enable targeted student-learning outcomes, b) what factors determine effectiveness as institution type, curricular level, and student audiences vary, and c) what challenges exist for widespread propagation of the approach and how might these be overcome. Broader impacts of the project include a) the production of insights and practices that promote remote use of research-grade analytical instrumentation at multiple levels of the undergraduate curriculum, providing a model that could be used at other research centers to enable heretofore inaccessible analytical capabilities at a wide range of undergraduate institutions, b) engagement of a diverse range of students (from seniors in majors' classes to first-year non-majors in introductory classes) and institutions (from research universities to community colleges) in authentic research, a high-impact practice for retaining students in STEM disciplines, and c) professional development for faculty at the partnering institutions and beyond, as well as for a postdoctoral scholar and graduate student engaged in discipline-based educational research.